Introducting Grid Computing into the Undergraduate Curricula

Computer Science (31)

Grid computing is a very important area for high performance computation and resource sharing. Computers can be distributed world-wide to create a global cluster. This project adapts existing material on cluster computing and existing graduate material on grid computing (for example, from the University of New Hampshire and the University of Melbourne in Australia) to introduce grid computing into undergraduate curricula. Grid computing is applied not only to high performance scientific computing but also to enhance business practices and to achieve cost saving. The project addresses security and management issues in addition to application programming issues, demonstrates how undergraduate institutions can provide their students with grid computing facilities, and offers educators new course materials for teaching grid computing.